Database Formulation and Design Enhancement Initiatives for Vibration Assessment

PROJECT ABSTRACT

Database Formulation and Design Enhancement Initiatives
for Floor Vibration Assessment

Principal Investigator: Linda M. Hanagan, Ph.D., P.E.
CMS Proposal #9900099

Many lightweight floor systems experience excessive levels of vibration
caused by normal occupant activities such as walking, dancing, aerobics,
etc. Improving the structural designer's ability to provide an acceptable
floor system is the subject of this research initiative. The scope of this
research is defined under four research subject headings: 1) Floor
vibration case studies: A minimum of ten floor vibration case studies are
being studied to provide researchers, including the PI, with a more
extensive database on the vibration behavior of in-place steel floor
systems; 2) Research on ballroom floors: Several high profile ballroom
facilities have been receiving negative attention in the press for their
disturbing levels of floor vibration. The cause of these problems is under
investigation and possible solutions are being sought; 3) Utilizing
computer software in the design process: Research is being undertaken to
study the use of general purpose structural design and analysis software in
the evaluation of floor system designs; 4) Supplemental design criteria:
This research is targeted toward refining specific portions of the Design
for Walking Excitation criterion to aid the designer in predicting
unacceptable floors.